Self-Organization in Tethered Polymer Layers

A new physical state of long-chain polymers is becoming increasingly important in technology. In this state the ends of the polymer chains are forced to crowd together at a surface, thus causing them to elongate one another. The resulting stored elastic energy gives rise to striking spatial patterns and mechanical responses which have not been explained. Recently we have developed a new theoretical method for treating this mutually elongated state of 'end-confined" or "tethered" polymers. We will apply the method to understand the layer of end-grafted polymers often used to stabilize colloidal particles. We will calculate the functional form of the osmotic-pressure corona around such particles responsible for steric stabilization. End-confined polymers in, for instance, a lamellar stack of copolymer layers flow in a distinctive way because their entanglements are quite different from those in simple polymer liquids. We will calculate the relaxation of stress with time in this state using recent theories of entangled-polymer motion. We will explore the distinctive local elastic properties of the layer by calculating the linear response of the pressure to a nearby perturbation of the density. Finally, we will calculate the interaction energy induced by bridging of surfaces, for instance by triblock polymers. %%% Theoretical research will be undertaken on the properties of polymers which are attached at one end to a surface. This attachment causes the polymers to interact in a way which produces unusual properties which will be explored in this research. The results of this work will produce a deeper understanding of this class of polymers and provide a foundation for commercial application.